DIMACS Workshop: Data Depth: Robust Multivariate Analysis, Computational Geometry and Applications

Support is provided for the DIMACS workshop "Data depth: Robust multivariate analysis, computational geometry and applications" at Rutgers University. The workshop brings together theoretical and applied statisticians and computer scientists to promote and further the use and development of depth functions in nonparametric multivariate analysis. Data depth has applications in and connections with a number of different research areas, such as aviation safety, data compression, image analysis, data mining and analysis of genetic data.

The workshop addresses significant open conceptual issues and establishes perspective on applications. It also sets primary directions for further research, emphasizing the role of computational geometry in understanding concepts of and developing algorithms for data depth.